Multiscale Simulations of Heterogeneous Particulate Flows

The proposed research is on development and simulation of a multiscale
model for heterogeneous particulate flows, in which the motion of a very
large number of small solid particles is coupled with a Newtonian
incompressible fluid. The problem derives from particle transport,
sedimentation, fluidization and separation processes that are common in
many applications. Currently, there are two major approaches to simulate
such flows: one of them is based on averaged equations, the other one - on
direct numerical simulations. The first approach requires homogeneity in
the flow which is often violated in applications, while the second one is
currently limited to a relatively small number (compared to applications)
of particles. However, practical applications involve millions and
billions of particles whose small size leads the problem of interest to
span two length scales: fine scale - the scale of particles, and coarse
scale - the scale of the application. In developing the proposed approach
the variational multiscale framework is employed, in which the problem is
split into two problems corresponding to the coarse and fine scales. It is
assumed that in each coarse grid the particle distribution can be of three
different regimes depending on their concentrations: dilute, moderate and
dense. The main goal of the proposed study is to design a multiscale
method that can handle heterogeneous flows in all three regimes in a
unified way. The key idea of the proposed approach is, after separating
the two scales, to use properly chosen subgrid models adaptively to
represent micro-scale flow and particle dynamics on a coarse grid. In the
dilute limit, a modified viscosity is used to represent averaged effects.
In the dense limit, the discrete network approximation method to
approximate the subgrid effects is utilized. Network models allow avoiding
detailed fine-scale simulations in the dense regimes and provide
substantial CPU savings. In the intermediate regime, fine-scale features
within a target coarse-grid block are resolved. The issues to be focused
on are (1) coarse coupling, (2) boundary conditions for local problems,
(3) approximation of subgrid effects, (4) effective solution strategies.

The proposed project provides tools to simulate heterogeneous particulate flows of small rigid particles in an incompressible fluid which have been
of great interest for the last decade and are commonly encountered in many
applications and fundamental fluid mechanics. The complexity of this
problem due to the presence of two different length scales is enormous and
only very recently the development of numerical techniques for direct
numerical simulations and computing power allowed for some attempts to
numerically resolving flows containing a relatively large number of
particles. However, existing direct numerical simulations methods have
been developed for flows where the maximal number of particles to be
handled does not exceed a couple dozens of thousands while for practical
applications much larger amount is of primary importance. This dictates a
need in developing a state-of-the-art predictive multiscale model for
heterogeneous particulate flows which allows one to obtain a detailed and
accurate representation of the flow, and which is the main focus of the
proposed research.